License Fees for NSF Utilization of ISI Science Citation Index (SCI) Data Base for 1991

This award pays the license fees for permission for NSF to use the Science Citation Index bibliometric data base for the years 1989 and 1990, in accordance with the Licensing Agreement between NSF and the Institute for Scientific Information. Initial uses of the data base by NSF will be to develop a variety of bibliometric analyses for use in the National Science Board's Congressionally mandated Science & Engineering Indicators volumes for 1991 and 1993. Other uses within the scope of the Licensing Agreement may also be undertaken.